Workshop on Axiomatic Design and Manufacturing; Boston, Massachusetts

Design is the key technology for industries that wish to increase their competitive advantage in the international marketplace. This advantage comes from the ability to identify customer demands and quickly translate these into new products. The application of methodologies which can shorten the lead-time in product development and be applied as a general tool for design in many fields will be essential for the future competitiveness of the United States industry. The purpose of the workshop is to explore how the axiomatic approach to design can be applied to satisfy the industrial needs and be further developed to provide the fundamental basis for design. The workshop will examine the design needs and problem in the areas of product and process design, software design and organizational design. The needs of the industry will be examined in terms of fundamental design methodologies. The constraints and requirements imposed by industrial practice to the automotive, construction, material, electronic and software industries will be discussed.***//